SBIR Phase I: Nanostructured Sorbent for Hg Removal from Scrubber Water to Below 10 ppt

This Small Business Innovation Research Phase I project focuses on the
evaluation and optimization of a promising sorbent, Silica-Titania Composites
(STC), for mercury removal from coal-fired power plant scrubber water to
below 10 ppt. Coal-fired power plants are a predominant mercury emitter in
gases and liquids. There are no commercial technologies for mercury removal
from scrubber water to levels anticipated under future regulations (i.e., 1 to
10 ppt). Sol-gel Solutions, LLC (Sol-gel) has obtained mercury concentrations
below 1.3 ppt when evaluating the STC for mercury removal from a mixed
wastewater from a coal-fired power plant. These levels would comply with the
Great Lakes Initiative, a strict criterion that will be enforced in parts of
the U.S. in 2010. The objective for the proposed project is to optimize the
technology for mercury removal from scrubber water from several coal-fired
power plants, with the ultimate goal of designing a commercial system. It is
expected that the STC will effectively remove mercury to below 10 ppt, with
the potential of being recovered and reused.

The broader impacts of this research are the protection of humans and
wildlife from exposure to mercury. In humans, this exposure may impair
neurological development, particularly in fetuses and during early childhood.
A key element of the proposed work will be the promotion of interest in
science and engineering via dissemination of the learnings from the proposed
work and related fundamental science to high school and community college
students, among others, via a targeted "webinar" and newsletter.